The Effects of the 1981/82 World Recession on Brazilian Economic Development

This special minority award will give Ph.D. student Augstin Jose Ros additional flexibility in pursuing his graduate studies and research in economics. This award will strengthen minority research participation in economics. More specifically, the grant will permit Ros to study the effects of the 1981/82 world recession on Brazilian Economic development. Ros will investigate the overall effect the recession had on numerous macro and micro variables. Special attention will be paid to Brazil's important substitution policy implemented in the mid seventies. The import substitution policy of the mid seventies was geared to make Brazil less dependent on imported basic inputs and capital goods. This research investigates the net effect the recession had on these goals. The grant permits Ros to investigate records at the Economic Development Bank of Brazil.